POSE: Phase II: Cardinal: An Open-Source Ecosystem for High-Fidelity Multiphysics for Energy Applications

Cardinal is an open-source software framework used for simulation of energy systems and their enabling research technologies, such as fission reactors, fusion power plants, and accelerators. It allows engineers to design, optimize, and regulate energy technologies by filling a key need for predictive evaluation of turbulent fluid flows, heat transfer, and neutron and photon radiation fluxes in these complex energy systems. This project continues to grow the usability and functionality of the Cardinal system, while also expanding its community into other important areas of high-energy research such as radiation therapy, space exploration, and geothermal energy.

This project builds an open-source ecosystem (OSE) for Cardinal through a multi-faceted effort. The new ecosystem creates curated verification and validation suites allowing reproducible and interoperable applications of Cardinal. The team generates tutorials and runs workshops on how to use Cardinal and how to contribute to the growth of Cardinal. A robust governance model is implemented through a Change Control Board which also enforces a risk and security plan to ensure quality assurance processes benefit all users. Improved software packaging, deployment, and testing is pursued to support new and existing users. A Cardinal Fellows program onboards new members to the core developer team and assists the expansion into new disciplines. New developer-oriented documentation positions Cardinal as a central platform for customizing high-fidelity physics simulations. The outcome of this project is a sustainable, distributed, open community of users/developers tackling the world's largest challenges in energy.